Reciprocal Net-- A Distributed Molecular Database

The Reciprocal Net project is constructing and deploying an extensive distributed and open digital collection of molecular structures. Associated with the collection are software tools for visualizing, interacting with, and rendering printable images of the contents; software for the automated conversion of local database representations into standard formats which can be globally shared; tools and components for constructing educational modules based on the collection; and examples of such modules as the beginning of a public repository for educational materials based on the collection. The contents of this collection come principally from structures contributed by participating crystallography laboratories, thus providing a means for teachers, students, and the general public to connect with current chemistry research. The collection will be fully integrated into the emerging NSDL framework, constituting a resource of outstanding value for education at every level. The methodologies and tools of the project enable it to be fully distributed and self-sustaining after the initial startup period.